CAREER: High Performance Computational Method for Stochastic Design Problems

The importance of uncertainty analysis and stochastic modeling
has received increasing amount of attention in recent years,
especially from the Computational Mathematics society.
Extensive research efforts have been devoted to uncertainty
quantification and stochastic computations, and novel numerical
methods have been developed to efficiently deal with large and
complex systems with uncertainty. Although these methods have been
demonstrated to be highly effective in predicting the behavior of
complex stochastic systems, the design industry has not taken full
advantage of these developments, and the design procedures in many
disciplines remain almost exclusively deterministic. The research
objective of this proposal is to develop new mathematical and
numerical methods for multidisciplinary design problems with
uncertain inputs, with an emphasis on the efficiency and accuracy
of the new methods so that they are applicable to large-scale,
realistic engineering applications. This objective will be attained
through three major efforts: (1) employing rigorous mathematical
theory to form a unified framework that allows one to conduct
systematical analysis and error estimates; (2) employing the
state-of-the-art stochastic algorithms to construct a set of high
performance design algorithms for two major classes of
uncertainty-based design: robust design and reliability design;
and (3) extending the new methods to large-scale complex systems
and developing fast and parallel solvers.

Quantifying uncertainty is of paramount importance in almost all
aspects of science and engineering. It is of particular significance
in modern-day strategic planning and risk management where decisions
are made in a constantly changing landscape with many unknown
factors. Examples such as epidemic control, aircraft optimization
under extreme conditions, optimal response following natural
disasters, etc, are abundant. Such problems are essentially design
and optimization in a complex and multidisciplinary environment,
with substantial uncertainty interacting in a highly nonlinear fashion
in the systems and parameters. While simulation based design tools
continue to be advanced at rapid rates, little attention has been
paid to incorporation of state-of-the-art mathematical techniques
in stochastic analysis and uncertainty quantification. The traditional
approaches, e.g., those by using safety factors to accommodate
uncertainty in a gross manner, are becoming increasingly obsolete and
often result in overly conservative decisions. This project is valuable
for its multi-disciplinary influence, its fundamental contribution to
uncertainty-based design problems, and more importantly, its high
performance stochastic design algorithms the provide better and sharper
analysis for decision makers. The project will unite a collection of
uncertainty-based design techniques scattered over various engineering
applications with the cutting-edge stochastic computation framework.
It is a true synergy of Computational Mathematics tools and practical
demands, and can be extended to a large class of design and optimization
problems.